Computer-Interfaced Instrumentation for Undergraduate Coursework and Research Apprenticeships in Psychology

Through the purchase of Macintosh microprocessors, interfaces and software, psychology undergraduates at Averett College are able to learn research skills using up-to-date instrumentation and data management methods. A sequence of three lab courses requires students to take increasing responsibility for conducting psychological research; and an increased number of students are enjoying improvements in the quality and variety of research projects available to them in the labs. Student research projects also are being automated using Macintosh microprocessors, along with the software needed to control ten research stations and to support data management, statistical analysis, and graphics functions. Test chambers using either rats or pigeons as subjects have been procured, further increasing the range of observations that can be made.